University-Industry Cooperation and the European Community

Among the ramifications of the unification of the European Community (EC) in 1992 is the potential to create a formidable research and development (R&D) enterprise. For example, it is estimated that by 1992 national civil R&D expenditures of the 12 EC nations will reach parity with those of the United States, and thereafter will surpass them. After unification, the EC will therefore become one of the world's two major scientific entities. As the EC moves toward unification, a major goal is to remove many of the barriers that have inhibited the kind of university- industry-government laboratory interactions in Europe that are beginning to be effective in the United States. An increase in the proportion of cooperative research based on those interactions is likely to alter the terms of cooperation between U.S. and European scientists and engineers. For example, more of the research conducted by European academic investigators could become proprietary or be restricted to participation by European scientists. On the other hand, there is little doubt that European economic unification, coupled with increasing university- industry-government laboratory cooperation, will result in a markedly richer European research environment. While the terms of U.S. participation will very likely change, U.S. scientists and engineers should be able to participate to their advantage, provided the nature of the evolving European research environment is more clearly understood and provided that understanding is used as the basis of science policy development in the United States. Dr. Walter Massey, Vice President for Research and for Argonne National Laboratory, proposes to make an intensive study of trends toward university-industry-government laboratory research in the context of Europe 1992. He will (a) select a few major corporations in key, technology-intensive industries and explore their research goals through personal interviews with executives in R&D areas, as well as with those at the corporate level; (b) meet with university and national laboratory administrators and scientists to learn of their efforts and the obstacles faced in working with industry; (c) spend time with key members of the EC and its subsidiary institutions; and (d) meet with senior government officials in the major EC countries to become familiar with their role in the promotion and sponsoring of joint research activities. Dr. Massey's research will provide the basis for both a graduate course at the University of Chicago and a book.